Space-Time Description of Non-Migrating Tidal Effects in the Low-Latitude Ionosphere

This project will design, fabricate, and deploy a longitudinal network of instruments along the magnetic equator in the Indo-Pacific region in order to facilitate investigations of day-to-day low-latitude ionospheric variability, particularly with regard to migrating and non-migrating tidal structures. Such measurements will be able to resolve space-time ambiguities in satellite observations of wave structures, and the project will determine whether such structures are produced as a standing wave pattern or by zonally propagating, non-migrating waves. Specifically, the instrumentation will include magnetometer pairs and radars capable of obtaining both 150 km and equatorial electroject echos. This project will build upon previously established international collaboration and foster new partnerships with international investigators.